Interpreting Stratification in the Sedimentary Record from Experiments on Combined-Flow Red Configurations in a Large Laboratory Flow Duct

Interpreting Stratification in the Sedimentary Record from Experiments on Combined Flow Bed Configurations in a Large Laboratory Flow Duct Ancient sediments originally deposited in shallow marine waters show distinctive styles of stratification that are thought to be caused from oscillating storm-induced flows. Interpretation of these deposits and their stratification is controversial. The PI proposes to build a combined flow duct to simulate various flow environments, and to study the resulting bedform configurations and stratifications over a wide range of oscillation periods, oscillation velocities, and super-imposed currents. These will then advance the knowledge of ancient deposits and the flow regimes responsible for them. After the bulk of experimental runs are completed, an advisory body of twelve experts on oscillatory flow have agreed to meet at MIT for a week to examine and discuss the results, and remake key flow duct runs. They will also discuss implications for interpretation, and plan further work.